Modeling the Behavior of Copolymers and Biopoloymersat Penetrable Interfaces (Materials Research)

The interfacial properties of copolymers contribute to increasing the strength of polymer composites and controlling the behavior of proteins at biological interfaces. Dr. Balazs will isolate the factors that control the interfacial activity of copolymers at penetrable interfaces, such as the boundary between immiscible polymers and the surface of lipid membranes. Using theoretical models and computer simulations, she will probe the effect of molecular architecture, solvent quality and temperature on the interfacial activity of synthetic and biological chains. The results of the former studies will yield guidelines for fabricating materials with enhanced mechanical properties. Through studies of protein-membrane interactions, she will isolate the features that promote the formation of channels within the lipid bilayers. In order to develop valid theoretical models, it is particularly beneficial to have discussions with other theorists and, most importantly, to test the prediction through experiment. In studying the behavior of polymers at blend interfaces, the Chemical Engineering Department at the University of Texas is unique in providing both these opportunities. In a similar manner, the Scripps Research Institute also provides an exceptional environment: both theorists and experimentalists are currently exploring the behavior of proteins at interfaces at this center. The collaborations will significantly enhance Dr. Balazs's ability to pursue these topics. Interactive activities at the host institution include: establishing an Undergraduate Research Opportunities Program in the Chemical Engineering Department at the University of Texas, since the undergraduate years are critical in terms of influencing the students' ultimate career choices, and active research experiences are one of the most effective ways of encouraging students to pursue scientific careers; and at Scripps, delivering a series of informal seminars to demonstrate how concepts in polymer physics can be used to determine the behavior of biopolymers to facilitate communication between biologists and physicists. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.